Apprenticeships in Science and Engineering for Rural and Remote Areas

The Oregon Graduate Institute of Science & Technology seeks support for an expansion of the Apprenticeships in Science and Engineering (ASE) launched in 1991 by its Saturday Academy with the placement of 80 students. Among the project's goals are increasing the opportunities for Hispanic and Native American students and integration of applied experiences from the field into the curriculum. Over the four-year period of the project, an additional 75 students and 5 teacher-monitors will be involved with the program each year, for a total of 300 additional students and 20 additional teachers. Plans for continuation after the period of NSF funding are likely to be realized. The partnership will bear approximately 67% of the total project costs.